Research Experiences For Mechanical Engineering Undergraduates (REMEU)

The FAMU/FSU College of Engineering is providing mechanical engineering juniors with training in the conduct of research and participation in active faculty research projects. The major objective is to increase student motivation to pursue and succeed in the mechanical engineering profession. Research experiences are used 1) to demonstrate the relevance and professional applications of basic and advanced course work, 2) to provide experiences in the challenges and rewards of research and, thus, encouragement to pursue graduate degrees; and 3) to build mentoring bonds between faculty and undergraduates which encourage retention and graduation of members of underrepresented groups.